REU: Student Research on the Naco Valley Archaeological Project, Northwestern Honduras

This is a Research Experiences for Undergraduates project. It provides research experiences for ten students at Kenyon College. Students will participate in projects involving archaeology.